A Feasibility Study: Integration of Mixed-Transmission Lines (MTL) Tpyes Using Micromachining Techniques

Proposal Number: ECS-9714053 Principal Investigator: Rhonda Franklin-Drayton/ University of Illinois Chicago Title: A Feasibility Study: Integration of Mixed-Transmission Lines Types Using Micromachining Techniques This is a Research Planning Grant to initiate a program to develop a circuit design methodology for high frequency mixed signal (microwave and optical) integration that can be used in high speed applications within the field of communications.